Scanning Electron Microscope for Systematic Biology

Abstract Hormiga

A variable pressure scanning
electron microscope (SEM), a critical point dryer and a sputter coater will be used for
research in the systematic biology of various groups of organisms. This SEM
will be used to collect morphological data of a wide variety of living and
extinct organisms. This equipment, together with existing dissecting and
light microscopes, a CCD digital camera for microscopy, scanners and
computer workstations will be used to establish a core microscopy and image
analysis facility in the Department of Biological Sciences at George
Washington University. Access to SEM is essential to accomplish the goals
of six research groups (four of them with active projects currently funded
by NSF) in the departments of Biological Sciences and Anthropology at The
George Washington University. At present at least seven faculty, two
postdocs, and 17 graduate students will be using this instrument.
The following research projects will use the SEM
facility described in the proposal: Systematics of araneoid spiders; Evolutionary history of flowering plants; SEM analysis of skeletal tissue growth;
Systematics of Ciliated Protista; Anatomy and
phylogeny of dinosaurs and other mesozoic reptiles; and
SEM analysis of spermatozoa, spermatozeugmata, and secondary sex organs of
inseminating ostariophysan fishes.
Over the next three years these researchers and
their collaborators and students will have to take an estimated 21,000 SEM
micrographs in the course of the research projects described in this
proposal.